CAREER: Electroweak and Strong Coupling Physics

One of the central events in particle physics will be the turning on of the Large Hadron
Collider (LHC) at CERN in 2007. Together with the Tevatron, this machine promises to
explore the energies relevant to electroweak symmetry breaking, the source of which
remains one of the great mysteries of the field. Solving this mystery will shed light on
the origin of mass for fundamental particles (such as the electron), and on the reason
the weak force is short ranged. Electroweak physics might also hold the key to the
identity of the dark matter of the universe, and its discovery at the LHC is an extremely
exciting possibility. However, it might not be easy to disentangle the signals that we see
at the accelerator. Even though a weakly coupled supersymmetric Standard Model
extension remains an attractive option, recently there have been several interesting
proposals for non-supersymmetric scenarios. These utilize non-perturbative dynamics
both in 4D field theory and in holographically related 5D versions of 4D field theory.
Such extensions of the Standard Model (SM) might result in fairly similar experimental
signatures both to each other and to certain types of supersymmetry. It is therefore very
important that theorists who are familiar with a variety of different mechanisms for
electroweak symmetry breaking continue developing both novel theoretical frameworks,
as well as study possible signatures with close communication with experimentalists. It
will thus be more likely that we shall be prepared for the surprises that nature has in
store for us at the LHC. The PI hence intends to explore options for electroweak
physics with emphasis on models which include forms of strong dynamics, and on ways
to distinguish their experimental signatures at the LHC. In terms of broader impact, the
PI has an established relationship with Needham High School, where he has made
arrangements to give a series of lectures about particle physics, the science lifestyle,
and the opportunities it offers for exploration and communication. The idea is to
encourage young people, and especially women to get excited about theoretical
physics, both through conversation about the experiences of being a theorist, as well as
discussion of new developments in theory research, emphasizing the current
excitement in the field concerning the LHC.